Computerized Telescope Controller for Enhancement of Observational Astronomy Courses

The University of Northern Iowa will use a computerized telescope controller with an existing 0.4 meter telescope to enhance the utility and ease of use of the telescope. With the controller, students can spend less time with the mechanics of operation and more on methods of astronomy and gathering of astronomical data. The improved accessibility of the telescope will foster greater interest in astronomy among existing students, attract students who may have been intimidated by or hindered from using the telescope, and enhance both the depth and educational quality of the courses. The university will match the award with an equal amount of funds.